Development of Discontinuous Galerkin Methods for Kinetic Transport Models and Control Problems with State Constraints

The objective of this project is to develop and analyze novel discontinuous Galerkin (DG)
methods for solving partial differential equations arising from various application areas. The DG
method is a class of finite element methods using completely discontinuous piecewise polynomial
space for the numerical solution and the test functions. Those robust, compact, locally
conservative methods can treat arbitrarily unstructured meshes and are ideal for hp-adaptive
strategies. The good properties of the scheme call for further research in areas that are
traditionally not solved by DG methods. In this grant proposal, the PI plans to conduct research
in the following directions: (1) a positivity-preserving DG method for solving the kinetic
equations, including the Boltzmann equations and Vlasov equations, (2) application of the
proposed method to solar cell/semiconductor device simulations and plasma physics, (3) a novel
DG solver for the Hamilton-Jacobi equations and its applications in control problems with state
constraints.

The proposed activity lies between algorithm development, analysis and applications.
Developing robust, high-order accurate, cost-efficient numerical algorithms for kinetic models
and control problem is very challenging, not only because of the high dimensionality of such
models, but also because of the fact that a deep understanding of the underlying physics is
required. The eventual goal is to produce solvers that are computationally efficient and suit the
need for applications. The PI's work arises from the computational demand of real world
applications. Many ideas developed in this proposal will have straightforward applications and
impacts in semiconductor device simulations, high-efficiency fuel cell modeling, control problems
and plasma physics. The PI actively interacts with students and faculty members in mathematics,
physics, electrical engineering and chemistry departments. In addition, the PI will integrate the
project with the training of graduate students in order to communicate in a broader context.